The Twenty-First Riviere Fabes Symposium

This award provides funding for US participation in the conference "The Twenty-First Riviere Fabes Symposium" that will be held at the University of Minnesota from April 27-29, 2018.

The conference focuses on recent developments in Analysis, especially in the fields of partial differential equations, applied analysis, harmonic analysis, and geometric measure theory. A number of distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, researchers not funded by NSF and the like an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at: https://math.umn.edu/riviere-fabes